Interdisciplinary Workshop on Weather and Climate Extremes

This project is for the purpose of organizing and holding a workshop titled "Interdisciplinary Workshop on Weather and Climate Extremes" which will be held in Clemson, South Carolina on May 16-18, 2023. Recent years have seen an increase in economic losses due to climate and weather extremes, such as wildfires, heat waves, storm surges. Extreme value theory (EVT) provides a framework for studying weather and climate extremes. Compared to more traditional statistical methods, EVT is less well known to many geoscientists and statisticians. It is therefore critical that statisticians with specialized knowledge of EVT interact with geoscientists and applied statisticians working at the interface of statistics, atmospheric and hydrological sciences. This workshop have the following major aims: (i) to facilitate collaborations among statisticians, atmospheric and hydrological scientists; (ii) to present state-of-the-art methods; and (iii) to develop new talent in studying weather and climate extremes. The workshop will include several organized activities, including short courses, panel discussions, invited scientific presentations, a poster session, and team building and brainstorming exercises to establish new research directions and groups.

The program of the forthcoming Workshop on Weather and Climate Extremes features the following topics: i) Models for Spatial and Spatio-Temporal Extremes; ii) Using Climate Models to Project Future Extremes; iii) Detection and Attribution of Extremes; iv) Coastal Risk and Tropical Cyclones; v) Machine/Deep Learning and Extremes; vi) Linking Large-Scale Conditions and Extreme Events. This project will encourage the participation of graduate students, early-career researchers, and members of groups under-represented in statistics and geosciences. More details about the workshop can be found at: https://whitneyhuang83.github.io/WCE2023.